Student Expectations in University Physics

9355849 Reddish The project which was proposed originally was intended to study how students' expectations affect their learning in a number of specific cases. The results are intended to lead to modification of materials produced at the University of Washington which are aimed at helping students articulate and explicate their views of the process and content of science. The project involved two primary dynamic studies looking for student attitudes;and, the other focused on factors influencing students' self-debugging skills